Development of Research and Human Resources Infrastructure

The Experimental Program to Stimulate Competitive Research (EPSCoR) in the state of Puerto Rico will enhance the research competitiveness of approximately 70 faculty working in 7 research clusters. The selected research areas: (1) Development of a Marine Biotechnology Center: Molecular Regulation of Biotic Interactions, Response, and Production; (2) Molecular Biology of Parasites Group; (3) Research in Cellular and Molecular Mechanism of Nervous System Regeneration Group; (4) Computational Mathematics Group; (5) Development of an Engineering Infrastructure Research Center; (6) Development of a Materials Research Center; and (7) Development of an Interdisciplinary Group of Research on Metal Clusters: Their Structure, Bonding, and Reactivity. Each of the projects have identified short, intermediate, and long range goals (up to the year 2000) and devised strategies to: achieve national and international levels of excellence; strengthen human resources in S&E, including the development of two new Ph.D.s, and provide for the involvement of four- year institutions faculty and students in their research project; create advisory councils of distinguished researchers to guide project development; establish collaborative agreement with national and international groups and laboratories; and vigorously seek additional funds to build on the base provided by EPSCoR. Collaborative agreements have been made with the Industry/University/Research Center (INDUNIV), the Corporation for the Technological Development of Tropical Resources (TROPICO), and the Puerto Rico Scientific Community Council (SCC) to promote and advocate for the strengthening of the S&E community and the development of R&D in the private and government sectors. Institutional commitments to EPSCoR include, $4.5 million contributed by UPR from Commonwealth funds, a waiver of indirect cost amounting to $2.1 million; as well as commitments to incrementally hire 35 new tenure-track S&E researchers. From the private sector $900,000 from TROPICO, and $45,00 from INDUNIV were secured to contribute to EPSCoR efforts.